Collection Improvement for Invertebrate Paleontology at Museum of Comparative Zoology, Harvard University

9312036 Gould The Museum of Comparative Zoology at Harvard University houses one of the world's premier collections of invertebrate fossils. The collections is an important resource for scientists. This project will provide compactors for storage of the specimens. This will provide space for growth and more efficient curation of the collections. It will also permit MCZ to become more active in acquisitions.